Wildlife Management and Animal Ecology in Australasia and North America: A Comparative Perspective

Dr. Dunlap is extending his prior studies of wildlife biology in North America to an examination of these issues in Australia and New Zealand. The fauna and flora of these two countries present wildlife scientists with both unusual opportunities for research and serious problems in control, management and the application of ecological theory. Under this grant, Dr. Dunlap is comparing North American and Australasian wildlife policies on pest mammals, on their policies for animals in national parks and wilderness areas, and on the development of scientific communities in wildlife biology. He is also testing models of "colonial" science and "center-periphery" relationships among national scientific communities. This project complements his previous NSF supported work on US wildlife policy and his further studies on Canadian policy. This project will contribute to our understanding of wildlife biology in Australasia and the relation of wildlife scientists there to their counterparts in North America. This grant will support Dr. Dunlap's travel and expenses for a six-week study of archival and library resources on wildlife management in Australia and New Zealand.